OPUS: Sycamore Creek Landscape Ecosystem

This project will synthesize a large body of ecological research
from a 27-year study of Sycamore Creek, a desert stream ecosystem in
Arizona. This study has yielded over 120 scientific publications
including a dozen synthetic works. The goal of the project is to bring
together the content of these publications, existing raw data, series of
photographs, and concepts from adjacent disciplines to generate a new
synthesis in the form of a book that will describe the dynamics of
Sycamore Creek and generate an original integration of the fields of
ecosystem science and landscape ecology. The book, along with several
papers in major scientific journals will contribute to our understanding
of creative synthesis in ecology and other realms of science. The
intellectual merit of this project lies in its annealing the disparate
fields of ecosystem and landscape ecology and developing a sound
philosophical view of synthesis in ecology. The broader impacts of this
research include the training graduate students at Arizona State
University to use the perspectives and methods of ecological synthesis
in their own research and future teaching. This combination of research,
teaching, and collaboration will promote and advance the methodology of
synthesis in science.